The Chemistry of Chaco Trees

9408145 Durand With National Science Foundation support, Dr. Stephen Durand will collect pilot data to assess the feasibility of a technique to determine the geographical source for timbers used to construct the Great Houses in Chaco Canyon, New Mexico. Chaco Canyon is a major archaeological site which was occupied between 900-1150 AD. The amount of labor involved in the construction of large "apartment houses" and ceremonial kiva lodges indicates a high degree of political organization and the integration of large numbers of individuals within a single social system. Archaeologists wish to understand what led to the emergence of the Chacoan system and have attempted to determine the geographic extent of its sphere of influence. Dr. Durand's project will provide important information which will assist in this process. His very preliminary data indicate that the wood used to build the great Chacoan structures bears the chemical imprint of the specific region in which an individual tree grew and that variations in chemical composition reflect the substrate of the particular region. Therefore, through analysis of the trees, it should be possible to determine points of origin. In this first stage of the project, he will collect pilot data to determine how well the chemical fingerprinting system works. This research is important for several reasons. It will provide data of interest to many regional archaeologists. It will shed new light on the development of cultural complexity in the Southwestern United States and help in the development of a tool of potentially broad scientific utility.